L-CAMP: Extremely Local High-Performance Wavelet Representations in High Spatial Dimension

+The mathematical development of wavelet theory and the accompanied
computational algorithms reached a mature, satisfactory, level in one
dimension. The situation is far less satisfactory in higher dimensions.
As a matter of fact, the current approaches for the construction of high-D
wavelet representations scale poorly with the dimension. On the one hand,
intrinsic constructions become hopelessly complicated already at relatively
low dimensions. On the other hand, the simple approach of lifting
univariate systems to higher dimensions becomes eventually immensely
non-local. As a result, the construction of effective, efficient, wavelet
representations in high dimensions remains a major challenge and an elusive
target. The premise of this proposal is that the only way to meet this
challenge is to fundamentally change the principles of wavelet
constructions. The ambitious goal of this project is to develop
representations that scale correctly with the spatial dimension: constants
in the complexity estimates of the algorithms that are independent of the
dimension; linear functionals that have limited, controlled, overlapping in
their supports; and performance grade that does not degrade with the growth
of the dimension. The project is expected to contribute in tangible ways to
NSF's broad criteria. This is first and foremost due to the intrinsic
importance of the research area, and the fact that the problem attacked in
this project is a major hurdle in the relevant research area. In addition,
the initiative offers a highly valuable training and education opportunity
to mathematical science students, education in areas that are at the
interface between mathematics on the one hand and science and technology on
the other hand.

Our era is marked by breathtaking improvement in sensor acquisition
capabilities and an explosive increase in communication over wired and
wireless channels. As a result of these and similar trends, the correct
handling of massive datasets is, these days, at the core of almost every
technology that deals with scientific data. The most fundamental issue in
this regard is the fact that the size of the dataset is merely an artifact
of the acquisition technology; it is not related to pertinent information
that the data encode, nor to the actual applications that are sought for.
Data representation is the scientific discipline that deals with challenges
like the above. It resolves the above problem by transforming the data into
a new format which allows an efficient and effective extraction of
information, storage, transmission, and the like. There is probably no way
to overstate the importance of research on data representation: Development
of novel data representations is ranked among the top scientific priorities
of our nation. Indeed, the innovators in this field are richly recognized
for their contributions: even after restricting attention only to research
on the mathematical and statistical aspects of data representation, one
finds, in the last eight years alone, two Medal of Science awards, as well
as five or more elections to the National Academy of Science. The wavelet
representation is among the most important contributions of the data
representation community to science. It was introduced in order to provide
an answer to the main shortcoming of the Fourier representation, i.e., the
fact that the latter never provides a sparse representation to transient
events. The research community succeeded in constructing very good wavelet
representations in 1D. Those systems are computed and inverted by fast
algorithms and strike as good balance as can be between performance and
localness. The same it not true in high spatial dimensions. Armed with
that observation, the intent of this ambitious project is to develop novel
classes of wavelet representations that are efficient and effective in high
dimensions.